Research Experiences for Undergraduates

This Research Experiences for Undergraduates (REU) Site project is in analytical, inorganic, organic, and physical chemistry. For a three-year period beginning April 1989, eight (8) undergraduate students will spend ten (10) weeks engaged in basic research in chemistry under the direction of various faculty members from the Chemistry department. The REU activities include unique features such as a joint effort with the scientific staff at Oak Ridge National Laboratory and a concerted effort to reach out to minority and Appalachian students. The proposed programs will run in conjunction with existing programs that bring nearly 100 visiting undergraduate science majors and faculty to UTK. The large scope of these programs, the extensive resources of UTK and ORNL, and the considerable previous experience of UTK in undergraduate training are essential ingredients in the success of this program.